Environmental Quality, Innovative Technologies, and Sustainable Economic Development A NAFTA Perspective

9422148 Macari Experts from United States, Mexico and Canada will meet in Mexico City, in November 1995, to discuss cooperative research programs and projects in Environmental Technology in support of the North American Free Trade Agreement (NAFTA), and to identify and prioritize research needs that will contribute to the development and use of environmental technologies which will result in the sustainable economic growth of the three countries. The proceedings of the workshop will be published and disseminated to interest research communities. ***